Acquisition of a Liquid Chromatography Mass Spectrometry System (LC-MS) at Lehman College

This ARI (Academic Research Infrastructure) Application requests a high pressure liquid chromatography-mass spectrometer (HPLC-MS) system for the Chemistry and Biology departments at Lehman College. This system will facilitate the research of three faculty members, as well as the research of a new faculty member in the Biology Department. Lehman College qualifies as a Minority Institution. HPLC-MS is a new and powerful technique for the analysis of natural products. In one step, it allows researchers to detect, separate, and perform a preliminary structural characterization of substances in a mixture. Since the mixtures under study can have hundreds of components, it allows easy analysis of hundreds of compounds in one experiment. The high pressure liquid chromatography (HPLC) component of the system is the most powerful method known to separate small and large organic molecules. Natural materials have thousands of such molecules in each cell. In each HPLC run, hundreds of peaks can be seen. However, these peaks cannot easily be identified in a simple HPLC apparatus. Compound identification in a simple HPLC apparatus depends typically on the availability of a reference compound from other sources and demonstrating that the reference compound has the same mobility and UV spectrum in several solvent systems as does the HPLC peak in question. Most HPLC peaks seen in natural mixtures remain unidentified since it is not easy to find, by intuition and chance, the appropriate reference compounds. The Mass Spectrometer (MS) component of the instrument takes each effluent peak from the HPLC, fragments it into ions, and determines the mass of each resulting ion. A tentative structural identification for each HPLC effluent compound can usually be determined from the masses and fragmentation patterns of each HPLC peak. With a tentative identification in hand, determination of a positive identification by use of reference compounds or by computer searching o f MS fragmentation pattern libraries is much simpler.